Culture and Moral Development: A Cross-Cultural Study

Existing psychological theories portray the domain of morality as extending beyond justice considerations to encompass interpersonal responsibilities (i.e. obligations to be responsive to the needs of family and friends). They generally assume, however, that universally individuals conceptualize interpersonal responsibilities as matters of personal choice rather than as socially sanctionable duties. This research examines cultural influences on the moral status of interpersonal responsibilities. Three experimental studies will be conducted assessing American and Hindu Indian adults' and childrens' (second grade and sixth grade) interpretations of obligations to help needy others. The research is expected to demonstrate that Americans tend to hold a relatively voluntaristic "relationship-based" perspective on interpersonal responsibilities, in which commitments to others are seen as capable of being voluntarily abandoned, not personally demanding and as dependent, in part, on whether or not the agent likes the other. In contrast, it will be shown that Indians tend to hold a less voluntaristic "role-based" perspective, in which commitments to others are seen as based on unalterable role expectations, potentially personally demanding and as unrelated to the agent's liking of the other. The investigation will make a theoretical contribution to social psychology in its demonstration that conceptions of interpersonal responsibilities are culturally patterned rather than universal. In identifying a system of interpersonal morality that has not been previously recognized within psychology, the project will also serve to expand current knowledge regarding the scope of the moral domain. Finally, in contrasting the reasoning of different age groups of children from markedly different cultures, the research will enhance current understanding of the processes underlying social cognitive development.